Palmer Station Satellite Imaging Capability

This is a sole source contract to establish a satellite image receiving station at Palmer Station, Antarctica. The system proposed will be capable of acquiring the meteorological imagery and geophysical data transmitted by the TIROS-N and DMSP series satellites. The system proposed will supplement the system installed at McMurdo Station to complete the coverage for meteorological/imagery of Antarctica for use in weather and sea-ice forecasting critical to flight and ship operations. In addition, imagery acquired will be collected and forwarded to Scripps Institute of Oceanography for archive and later analysis by the scientific community.